DISSERTATION RESEARCH: Ecomorphological Analysis of Nectar-Feeding Performance in Flower-Visiting Bats

Bats are critical for the pollination of hundreds of different plant
species in environments from arid deserts to tropical rainforests. Some New
World bats exist entirely on nectar and pollen, while others visit flowers
to supplement their regular diets of fruit or insects. The shape of the
skull is associated with the relative reliance on nectar in the diet. This
study investigates nectar-feeding ability (performance) among six species of
bats that range from occasional flower visitors to nectar specialists.
Feeding performance is measured by filming captive bats feeding at
artificial flowers that differ in both shape and nectar availability. These
experiments evaluate the impact of flower shape on feeding performance, the
maximum distance bats can extend the tongue, and how well bats can extract
small amounts of nectar. The feeding experiments are coupled with a
detailed analysis of skull and tongue structure to establish associations
between anatomy and feeding performance.
This research contributes to our understanding of the biological and
functional importance of anatomical diversity, and adds to the picture of
how these bats function within their ecosystems. By constraining behavioral
capabilities, anatomical differences ultimately help sculpt ecological
patterns of resource use and mediate the interactions between bats and
flowers. This combination of anatomical and behavioral data will provide
new insights into the diversity, evolution, and ecology of these important
pollinators.